Group Travel Grant for Faculty at Minority Institutions to Attend PLDI '94

9401706 Schonberg Statistics on the numbers of female and minority PhD's in computer science and engineering remain very disappointing. In an effort to improve these numbers, this project shall provide travel funds to faculty and students from women's colleges and minority institutions so that they can attend the ACM SIGPLAN Conference on Programming Languages and several related tutorial sessions. Primarily undergraduate institutions shall be primarily targeted. ***